Dissertation Research: Winter Habitat Segregation in a Neotropical Migrant Bird: Implications for Year-round Population Dynamics

9423591 HOLMES This doctoral research project integrates aspects of population biology and behavioral ecology to examine the patterns and mechanisms of habitat distribution and their population consequences of a Neotropical avian migrant (Setophaga ruticilla) on its wintering grounds. Preliminary data suggest that females are found in distinct and perhaps less preferable habitats, where they experience significantly lower overwinter persistence (survival) and lose more weight over winter than do males in more suitable habitat. The specific objectives of this research are to test whether social dominance is the mechanism producing this pattern of habitat occupancy, and to determine if there are consequences to physiological condition and survival. Results of this research will contribute to understanding the population biology of Neotropical migrant birds, the possible causes of their declining abundances, and furthermore, is essential to the development of sound conservation strategies.